Few Body Dynamics of Atomic and Molecular Systems

The proposed activities concentrate on the few body dynamics via a direct solution of the time-dependent Schrodinger equation on a numerical lattice. The theoretical and computational efforts will address the dynamics of continuum and Rydberg states in few-body atomic and molecular systems. Extensive use of a variety of massively parallel computing platforms will be made.